Acquisition of an Atomic Absorption Spectrophotometry System at the University of Mississippi Center for Marine Science

The Center for Marine Science at the University of Southern Mississippi is establishing a trace element laboratory and clean facility at its National Space Technology Laboratories (NSTL) location. An atomic absorption spectrophotometer system will be acquired and maintained for use by all investigators and will especially benefit NSF-sponsored research projects by increasing the capabilities of the institution to support research and engineering activities.